Theory of Magnetic Intercalation Compounds

Theory of Magnetic Intercalation Compounds: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project addresses questions of the basic magnetic properties of intercalation compounds. A phenomenological and microscopic analysis will be conducted of the properties and behavior of magnetic host materials with non-magnetic and with magnetic intercalants. In addition, such systems provide a means to study the transition from three-dimensional to quasi-two-dimensional magnetism. The project is under the direction of Dr. Laura L. Hinchey, Physics Department, University of California, Irvine, CA 92717, U.S.A., and Professor M. Balkanski, Laboratoire de Physique des Solides, Spectroscopie des Solides, CNRS, 4 Place Jussieu, Tour 13, 75230 Paris, France. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.